MRI/RUI: Acquisition of a Laser Scanning Confocal Microscope

A grant has been awarded to Dickinson College under the direction of Dr.
John Henson to support the acquisition of a laser scanning confocal light
microscope. The ongoing renaissance in the use of light microscopy for
research and education in cell biology, neurobiology and developmental
biology has been fueled by the capabilities of confocal microscopy
systems. They have become the instrument of choice due to their ability
to "optically section" cells and tissues and therefore allow for the 3D
spatial resolution needed to define structural relationships, along with the
temporal resolution needed to follow dynamic processes. Dickinson
College, an undergraduate institution with an excellent record of
student/faculty research and an innovative science education program,
will use this confocal microscope to support student/faculty research,
undergraduate education, and community outreach.

The confocal microscopy system will be equipped with a microinjection
set up and will support a wide variety of student/faculty research projects.
The mechanism of cell motility and division will be addressed in
experiments using sea urchin adult cells and embryos. How the liver
transports toxic waste will be the focus of studies using cultures of skate
liver cells. The turning on and off of specific genes during embryonic
development will be worked on using fruit fly embryos. The neural control
of metamorphosis in molluscan embryos and the localization of memory
mechanisms in the brains of conditioned day old chicks will be subject of
other studies involving the use of this instrument. Undergraduate
research students will be integral participants in all of these projects,
contributing to experimental design, execution and analysis as well as the
presentation of results at meetings and the publication of the results in
scientific journals. In terms of impact on undergraduate education, the
instrument will be incorporated into the teaching of courses in cell biology,
developmental biology, neurobiology, molecular genetics and
biopsychology.

The presence of a confocal microscope at Dickinson will have a number
of significant and pervasive broader impacts. Importantly this instrument
will serve as one of the underpinnings for a new interdisciplinary major in
Neuroscience at Dickinson that will involve coursework selected from the
offerings of the Biology and Psychology programs. In terms of service to
underrepresented student groups, women undergraduate students
currently make up roughly 75% of the Biology, Biochemistry and Molecular
Biology and Psychology majors. We also envision making this instrument
available to faculty and students at Gettysburg and Franklin and Marshall
Colleges, the two other member colleges of the Central Pennsylvania
Consortium, as well as using both the Pennsylvania Academy of
Sciences and the American Society for Cell Biology meetings as fora for
discussing applications of confocal microscopy in a small college setting.
Furthermore, we plan to write up research-oriented teaching labs that
utilize the confocal for publication in the new on line journal Cell Biology
Education. In terms of community outreach, the confocal microscope will
be used in a Howard Hughes Medical Institute-funded program in which
local high school teachers attend summer workshops in cell and
molecular biology at Dickinson. The instrument will be used by teachers
during these workshops and made available for use by visiting high
school student groups during the academic year.